Asymptotically Efficient Adaptive Control of Stochastic Systems

The problem of adaptive optimization of stochastic dynamical systems is considered with respect to the regret (or learning loss) criterion. The regret criterion accounts for the loss in performance incurred in a stochastic adaptive optimization problem because of the implicit on-line learning task involved when the system model is not completely known. In particular, the construction of asymptotically efficient adaptive control schemes (i.e., schemes that minimize the rate at which regret accumulates with time), and/or adaptive schemes that come arbitrarily close to the minimum rate is sought. The intention is to capture, through the proposed problems, important issues in the conflict between learning and control, to investigate these issues, and to obtain new insights and techniques in designing asymptotically efficient adaptive control schemes. The results of the investigation could have important implications on many areas of science and technology. They could lead to the design of better codes for communication systems with unknown channels; better control algorithms for communication and queueing networks with incomplete information about customer arrival rates, mean service time, or system configuration; better experimental treatments in clinical trials, and better adaptive control schemes for econometric models.